"All Systems Go" --- A Conference

The Society of Automotive Engineers is planning the feasibility for the development of three intensive units for grades six through eight about which the entire curriculum could be integrated for a few weeks. The units would take the form of automotive engineering design experiences: exploring automotive systems, flight technology and ground transportation. The materials would be targeted to specific grade levels and engage multiple community resources in dynamic ways. The planning period is to form collaborations with the other major national curriculum groups, and educational researchers and middle school personnel and to develop the prototype of the technological challenges which form the core of the integrated learning experience. Based on their experience with The World in Motion, the project will reach about 10% of the student body nationally through interactions with engineers in corporations and universities. The goals of the project also include the long term collaboration of businesses, professional societies and universities, the involvement of individual engineers with the education of middle school students, and the encouragement of a greater diversity of students to consider engineering as a career. The planning period is to establish a program development office, to hold a planning conference to establish the collaborations, to develop and obtain reaction to a prototype and to prepare a proposal for developing the curriculum units.